Student Travel Support for the CoSeRa Workshop. To be held in Pisa, Italy, June, 16-19, 2015

The main objective of this proposal is to request travel support for graduate students from
US institutions, who are co-authors of one or more accepted papers, to participate and present
their work at the 3rd International Workshop on Compressed Sensing Theory and its Applications
to Radar, Sonar and Remote Sensing (CoSeRa). This is the third edition of the CoSeRa workshop
series, which will be held in Pisa, Italy, from June 16-19, 2015.

Intellectual Merit:
The 2015 CoSeRa Workshop will have a highly international profile, with participation from
eminent scientists in the Compressing Sensing, Radar Signal Processing and Remote
Sensing fields from all over the world. Every day, the conference will offer one plenary session,
given by renowned scientists on key topics of research and development, and an oral and poster
parallel scientific sessions, where participants can present their most recent results on
the different topics of the conference. Using this approach, CoSeRa-2015 will serve as an
invaluable occasion for US graduate students to get in touch with the worldwide leaders in
signal processing research and optimum system development. More importantly, the students
will gain new ideas leading to stronger and more complete theses, and can put their contributions
in perspective and relative to the ongoing research activities. In essence, they will be exposed
to the most recent and advanced findings in the aforementioned areas.

Broader Impacts:
The proposed graduate student participation is poised to have a positive impact on compressive
sensing research in US institutions in the broad application areas of radar, sonar, and remote
sensing. The broader impact of the proposed student participation will materialize in the
near future, as these students joining the US workforce will be better positioned to spearhead
research and development activities in diverse industrial sectors, such as those serving law
enforcement, homeland security, and defense as well as the automotive industries. Compressive
Sensing yields low cost system design, enables fast data acquisition, and simplifies operational
logistics, which are crucial considerations in many such applications.